Mathematical Sciences: Dynamo Theory Methods for Vorticity Generation in Viscous Fluids

The principal investigator will study stability problems for viscous flows in the limit of very large Reynolds numbers (small viscosities) using techniques from dynamo theory. In particular, he will apply asymptotic methods of the WKB-Maslov type to problems in vorticity generation. Such methods have proved useful in studying analogous problems related to the "fast" dynamo effect. The basic idea is to calculate the Lagrangian trajectories responsible for the vorticity generation in much the same way that one calculates the Lyapunov exponents responsible for the generation of magnetic fields in electrically conducting fluids. A technique that is used often in science may be called "reasoning by analogy". In this project the principal investigator will use analogies between the properties of vortex lines in viscous fluids and magnetic lines in electrically conducting fluids to study the generation and propagation of fast vortices in slightly viscous fluids by making use of ideas from dynamo (magnetic field generation) theory. The research has relevance to phenomena that occur inside the earth, in the atmosphere and in outer space.